International School On: "Morphological and Functional Development of the Visual System;" July 1-10; Erice, Sicily

The overall objective is to hold a high level tutorial ("school") that will bring together for a 10 day period the leading international experts in the field of visual developmental neurobiology with young faculty, postdoctorals, and graduate students who are interested in acquiring knowledge and expertise in this field. The purpose of the school is two-fold. To provide a relatively informal forum by which the students can interact with established researchers, and to provide an opportunity for exchange of information among the representatives of the leading laboratories.